CAREER: Building IO-Efficient Systems Infrastructure

The amount of digital information being generated doubles every two
years. As a result, storage systems have to handle an ever increasing
amount of data each day. Data is often stored on solid state
drives(SSDs)for good performance. Unfortunately, SSDs have a limited
lifetime and will fail after a certain number of writes. Anticipated future
storage technologies such as Intel 3D XPoint also have limited
lifetime. Unfortunately, current storage systems have high
input/output (IO) amplification: 100 gigabytes written to the
widely-used RocksDB key-value store will result in 2.7 terabytes (28x)
written to storage. Solving the problem of storage failure due to IO
amplification is crucial to building storage systems of the future
that can handle the exponentially increasing amount of data.

The goal of this project is to build IO-Efficient systems
infrastructure that drastically reduces the amount of writes to
storage without compromising on performance. To achieve this goal,
this project contributes new data structures, techniques, and designs
of storage systems. Taking an end-to-end approach, this project
redesigns each layer of the storage stack, including key-value stores,
transactional stores, and file systems, while tuning the underlying
storage device to reduce IO amplification.

This project will significantly impact academia by advancing the
state-of-the-art, industry through technology transfer, students via
courses and projects, and the general public by providing better
open-source storage systems. Undergraduate and graduate students will
be trained in the careful analysis and building of advanced storage
infrastructure. This project will encourage the participation of women
and other under-represented minorities in research.

All software artifacts related to this project will be maintained at
the project website
(http://www.cs.utexas.edu/~vijay/io-efficient-infra.htm) for the
lifetime of this project. All storage systems developed as part of
this project will be open-sourced, with sufficient documentation to
enable ease-of-use. Other tools and benchmarks developed
during the course of this project will also be made publicly available
in text form for easy processing.